Liquid Jet Impingement Cooling in High Temperature Materials Processing

The objective of the proposed investigation is to address fundamental issues related to the cooling of high temperature, high heat flux surfaces by liquid jet impingement. In recent years such cooling methods have been widely used in the processing of primary metals such as steel and aluminum. Of concern is the delineation of regions associated with single phase forced convection, forced convection nucleate boiling, and film boiling on a heated plate exposed to a single jet of an array of jets. Local heat transfer measurements will be used to determine convection coefficients in single and two- phase flow regimes. Parameters to be studied include hydrodynamic and geometrical features of the jet and jev arrays. To assess the applicability of basic results inferred from laboratory studies, models that use laboratory-generated data to predict the thermal response of strip steel under mill conditions will be developed, and predictions will be compared to mill data provided by the steel industry.